E2020 Scholars: Advancing the NAE Vision

This project is awarding scholarships to academically talented and financially needy students and is supporting the scholars through a variety of structures and programs. Women and students from underrepresented groups are being especially targeted for support. Student scholars are enrolled in eight cohorts. Four of the cohorts are composed of traditional students and four are composed of transfer students. The students are enrolled in an engineering discipline and simultaneously in an Engineering Leadership Program, in keeping with the National Academy of Engineering's vision for the engineer of 2020. Through this program, the engineering leaders of tomorrow are being recruited and developed. There is significant industry and institutional support for the program.